MRI: Protein Purification system acquisition to support Bioengineering Red Fluorescent Tag for in vivo Microscopy

The protein purification system that is requested with this proposal is an essential piece of equipment for research characterizing and bioengineering light sensitive proteins from cyanobacteria. It is necessary to separate proteins from the E.coli expression system that are used for bioengineering proteins. The focus of The Spiller Lab is to engineer a small, bright red fluorescent protein tag for in vivo microscopy. Undergraduate, post baccalaureate and glide-year students at Mills College are engaged in the laboratory work.